SBIR Phase I: Novel Electronic Methods to Prevent Aquatic Biofouling

The broader impact/commercial potential of this Small Business Innovation Research (SBIR) project addresses biofouling (unwanted attachment of aquatic organisms, e.g. barnacles) of ships . Current antifouling methods are both harmful to the environment and costly. Toxic paints may pollute our seas and waterways. Maintenance to mitigate biofouling is labor-intensive, expensive, and somewhat hazardous. Increases in fuel costs due to frictional drag during a vessel’s operation can approach 40%. This project will develop an innovative electronic approach to biofouling prevention by developing submersible ultrasonic transducer arrays optimized for low voltage operation in a marina. The near-term commercial opportunity is with both marina owners and larger marina nationwide operators, with long-term opportunities in commercial and naval military transport, a total addressable market of approximately $10 billion.

This Small Business Innovation Research (SBIR) Phase I project will address the challenges for commercial deployment of transducer arrays to prevent biofouling of ships docked in marinas, and will enhance the scientific understanding of acoustic wave generation in water using piezoelectric transducers and the opportunity to use shock waves to prevent the attachment of bio-species to hulls of ships. The program has four scientific objectives: 1) Define the maximum fouling-free area and distance possible with a single, ultrasonic transducer mounted 30 to 50 cm underwater, on target surfaces 1 to 15 meters distant. 2) Achieve low-voltage operation required for commercial deployment, using new transducers with low impedance in submersible housings. 3) Develop an ultrasound sensor in a waterproof housing to create a coherent array for full coverage. 4) Develop a prototype electronically steerable array demonstrating a significantly larger biofouling-free area than a fixed transducer element, to enable use on larger ships, such as commercial and military transport. A beam-steering solution will reduce the required number of transducers for increased functionality. The program will innovate in areas such as acoustic beam steering, electronic design of piezoelectric transducers, and electro/mechanical design for submersible housings.